Vertical Integration of Engineering Core Curriculum Through Concurrent Course Offerings

This work proposes a four course sequence during the first two years of the engineering curriculum to simulate the concepts of vertical integration. This sequence will be implemented within existing curricula and is thus cost effective and not resource constrained. The goals and objectives of this work are to provide an alternative procedure for vertical integration of material that works within current frameworks, to increase student retention between the first and second year of engineering curriculum, to enhance the educational experience of engineering students through the integration of mathematics, physics, chemistry, and engineering science, to produce engineering students that are creative, critical thinkers and mature independent learners, and that are aware of the engineering role in society as a whole. The main contribution of this work will be the development of an integration scheme that can be implemented within existing curricula without taxing budgets or resources and without political concerns. The results of this project will also be transferable to other schools and to science and non-technical divisions as well.